Symposium Entitled Fullerenes: Chemistry, Physics and New Directions VII, at 187th Meeting of Electrochemical Society, Reno, NV

9523251 Kadish Funds are provided to the Electrochemical Society to assist in the registration and travel cost of junior scientists and students/postdocs in an international symposium devoted to the recent development in fullerenes. This symposium is a a part of the 187th Meeting of the Electrochemical Society to be held in Reno, NV during May 21-26, 1995. The symposium is broken into a number of topical research areas that have been supported strongly by the National Science Foundation. The purpose of this symposium is to provide a forum for exchange of information about research on fullerenes and related materials. The proceedings volume will be published under the title: Fullerenes: Recent Advances in the Physics and Chemistry of Fullerenes and Related Materials." ***